Stochastic Transport in Heterogenous Flows and Media

Theoretical research will be conducted in order to gain a better understanding of fundamental physical laws that govern stochastic transport processes in heterogeneous media with macroscopically correlated disorder. For composites with "block" disorder, conventional macroscopic transport equations generally do not apply, and an attempt will be made to formulate the appropriate composition laws that permit a macroscopic description of transport in such systems. The superdiffusive motion of Brownian particles in a randomly stratified flow field will then be investigated. Steady-state and first-passage characteristics of this system appear to be controlled by exceptional fluctuations, leading to a multiplicity of basic time scales in the system. Theoretical and numerical studies will determine the appropriate macroscopic description. The unusual transport properties of Brownian particles which are driven by prototypical random flow fields will also be explored. Finally, the first-passage characteristics in source-sink flow will be studied, where the interplay between spatially varying convection and molecular diffusion are anticipated to yield unusual first-passage properties. The studies will be extended to fractured media, where fast transport in fracture competes in a subtle way with slow transport modes. This project is coordinated with an identical one at the Department of Energy, Basic Energy Sciences, which supports Professor Joel Koplik of the City University of New York who is collaborating with Professor Redner. %%% Analytical and numerical research will be conducted on random transport in heterogeneous media and flows. In particular, the movement of a passive particle in porous media will be studied under the influence of various types of random disorder. Examples include fluid flow in stratified geological media and the propagation of fracture in rocks and other heterogeneous materials. The research addresses fundamental issues in statistical physics and, at the same time, has many real applications. The research is coordinated with an identical grant at the Department of Energy which supports Professor Koplik at the City University of New York.